Group travel for GR16

This grant supports the participation of US scientists at the 16th
International Conference on General Relativity and Gravitation (GR16),
to be held in Durban, South Africa, July 15-21, 2001. The "GR" meetings
are the oldest international meetings where approximately 500-1000
researchers worldwide convene to present and discuss their work, having
been held regularly every three years since the late 50's.

The funds will be distributed by a committee of leading US researchers
and will consist of partial travel support.